Chemical Ionization Mass Spectrometric Measurement of Aerosol Precursors in the National Oceanic Partnership Program (NOPP)

This award supports the participation of the PI in the National Ocean Partnership Program (NOPP). A series of aerosol formation process studies will be performed in the 600 m3 Calspan environmental chamber, which provides a controlled environment simulating the Marine Boundary Layer (MBL). The goal of the NOPP studies is to substantially increase our understanding of the photochemical and microphysical processes controlling the formation and growth of aerosols in the MBL.
Multiple measurement techniques will be applied to sample a uniform volume of air subjected to a set of controlled photochemical conditions. Aerodyne Research, Inc. will provide a Chemical Ionization Mass Spectrometer (CIMS) system to measure aerosol precursors, in particular, sulfur dioxide, sulfuric acid, nitrous acid, nitric acid, methane sulfonic acid, dimethyl sulfide, and ammonia.